A Standard Biostratigraphic Sequence for the Devonian of Western North America

Johnson's research in the Devonian of the western U.S. involves six areas of endeavor. 1. Brachiopod systematics; three new brachiopod genera will be described and illustrated. 2. Brachiopod-dominated communities; more than 30 communities known in the Devonian of Nevada will be analyzed in terms of their relative positions in an established time-rock framework. This will be a synthesis of data collected during the last 25 years. 3. The Eifelian, late Frasnian, and early Famennian conodont and brachiopod sequences will be made known by detailed sampling of measured sections in the northern Antelope Range, Eureka County, Nevada. 4. The depositional history of Givetian and late Frasnian-early Famennian rock sequences in he northern Antelope Range will be interpreted by study of rocks in a number of measured sections that are well dated by conodonts. The Givetian sequence of events is like that of the Keg River barrier of Canada. Quartz sand in upper Frasnian limestones is of western derivation. 5. It is intended to analyze geology along the frontal margin of the Roberts Mountains thrust from data gathered during the last 12 years. 6. A review paper will be prepared on the Paleozoic of the Western United States.